U.S.-New Zealand Cooperative Research: Variation in Reproductive Attributes Contributing to Fitness in New Zealand Chinook Salmon Populations

9315881 Hankin This award will provide partial support for the travel of Dr. David Hankin from the Department of Fisheries at Humboldt State University to spend five months at the National Institute of Water and Atmospheric Research in Christchurch, New Zealand conducting collaborative research with Dr. Robert McDowall and Martin John Unwin on reproduction in chinook salmon populations. In 1904, chinook salmon eggs from the upper Sacramento River in California were shipped to New Zealand where reproducing populations successfully became established throughout New Zealand's South Island, all traceable to this single egg shipment. No other attempts to produce self-sustaining transplanted populations of these fish have proved successful elsewhere in the world. The study will focus on variation in reproductive attributes of chinook salmon which are central to the fitness of the population. This collaborative research brings together the American and New Zealand experts concerned with the reproductive traits of chinook salmon.